Supplement to Completion of Case Studies for the Institute on Learning Technology (LT2) Web Site

Interdisciplinary (99)
This is a supplement to award DUE 0087150, "Completion of Case Studies for the 'Learning through Technology' website (LT2). This website is being designed on the basis of research and is relatively timeless in its approach to explaining the effective use of educational technology. Early feedback indicates that there is a strongly felt need for this resource among reform-ready SMET faculty. In this final phase, our work is bringing all of the planned sections of the website to a full-use threshold, which we define to mean the lowest level of completeness needed to be useful to reform ready SMET-faculty.